Remote Sensing Fundamentals and Applications, Second U.S.- India Symposium and Workshop, Bombay, India, 1994, Award in U.S. and Indian Currencies

9310755 Veziroglu Description: This project supports a second "U.S.-India Symposium-Workshop on Remote Sensing Fundamentals and Applications", to be held in Bombay, India, in late 1994. The first meeting was held in March 1985, and, since then, major developments have taken place in the field of remote sensing. Sessions planned include: design and development of active and passive, surface airborne and spacecraft remote sensing systems; satellite receptions and data processing; remote sensing data processing; data archiving and retrieval; meteorological and hydrological applications; agricultural and forestry applications; oceanographic, fishing and aquaculture applications; land use and geographic applications; geology and mineral resources; remote sensing applied to energy and fuels problems; pollution and waste heat monitoring; remote sensing for the commercial and private sector; government's role in remote sensing; space shuttle remote systems and results; and remote sensing education. Scope: The proposed meeting will be open to scientists from many countries in South Asia and the Middle East, in addition to the main participants from India and the U.S. The lecture texts of the invited lecturers will be published before the Symposium-Workshop. The Workshop reports will be published as one volume after the meeting and will be made available to interested organizations in the U.S. and India and to the participants. ***